Research Experiences for Undergraduates in Chemistry at James Madison University

Professor Daniel M. Downey and other members of the Chemistry Department of James Madison University are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, eight (8) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from oxidation-reduction of free radicals by metal ions to isomerization of metal complexes of crown ethers. Students will also be invited to participate in a two-week course entitled "Introduction to Research". Faculty from neighboring institutions will be invited to participate in the summer research projects in order to foster long-term research collaborations in this geographic area.